NASA/NSF Collaborative Research: Mechanosensing in Arabidopsis: A Genetic Analysis Based on Mechano-Inducible Luminescence

9416025 Davis This proposal describes a genetic approach towards the molecular analysis of mechanosensing in Arabidopsis. The importance of mechanical forces on plant responses to the environment have historically been greatly under-appreciated and relatively little attention is given to this environmental stimulus in basic plant research. However, numerous observations point to the fundamental importance of mechano-stimulation in plants both for pattern formation and for adaptive responses to the environment. Although physiological studies of these effects have been carried out in a number of species, molecular and genetic characterization of the mechanosensory pathway(s) involved have not been described. Such an analysis would develop an understanding of not only mechanosensory signaling, but also of how this pathway intersects with and integrates with transduction pathways from other environmental stimuli. This laboratory has previously discovered both a rapid molecular response -- induction of the TCH ("touch") genes - - and morphogenetic effects of mechano-stimulation in Arabidopsis. More recently, it has been shown with transgenic aqueorin-containing seedlings that, like tabacco, Arabidopsis also responds to mechano-stimulation with an immediate and brief elevatimn of cytosolic Ca2+ . That Ca2+ may act as 2nd messenger in transducing mechanical stimuli into nuclear gene activation events is supported by the observations that exogenously added Ca2+ can induce TCH gene expression in cultured cells and that three of the five identified TCH genes encode proteins with predicted CA2+ - binding domains, one being calmodulin. It is also possible that either or both of these molecular mechano-responses (Ca2+ elevation and TCH gene activation) may regulate subsequent developmental events, e.g. inhibition of elongation and delay of flowering. Two classes of transgenic Arabidopsis plants have been created, each of which translates one of these early m echano-responses into a light emission response. One class, containing a TCH4:luciferase (Luc) gene fusion, monitors TCH4 gene activation; the other, containing a constitutively expressed CaMV 35S:aqueorin gene fusion, monitors cytosolic CA2+ elevation. A low-light imaging system has been set up, and experimental conditions determined, to permit identification of mechanosensory mutants with aberrant luminescent phenotypes. Such mutants will allow the specific targeting of the early signaling events in mechanoperception, whereas mutants identified on the basis of altered morphogenetic responses to mechano-stimulation may often be defective in executing basic developmental responses (e.g. cell elongation) common to many signaling pathways. Mechanosensory mutants identified in these screens will be subjected to genetic and physiological analysis to begin establishing maps of signaling circuitry within the cell, while efforts to map and clone the genes are undertaken to initiate a molecular characterization of the mechanosensory pathway. %%% This research aims to expand our understanding of how organisms sense and respond to physical (also referred to as "mechanical) stimulation in a process known as "mechanosensing". Although the property of mechanosensing is usually associated with the specialized sensory cells involved in hearing, balance, proprioception and touch, it is in fact a general property exhibited by cells when they are touched, rubbed, flexed, stretched, compressed or vibrated. Such stimulation can arise both externally, as in the flexing of plants and trees by wind and rain, or internally, as in the rhythmic pulsing of blood against the walls of the vascular system, and can profoundly influence the growth, development and functioning of plants and animals alike. In humans and other mammals, mechanosensing is critically involved in the bone-building processes elicited by the compressive force of gravity on the skeleton; in the normal and pathological (e.g. atherosclerotic) responses of the vascular lining to the sheer forces generated by flowing blood; in the production of surfactant by stretching lung cells, which eases the work of lung expansion; in modifying the structure and properties of skeletal muscle in response to stretching, or the enlargement of an over-worked heart (cardiac hypertrophy) in response to elevated blood pressure; and in the relaxation of smooth muscle lining a distending bladder. As for plants, horticulturalists and farmers have long appreciated that wind-induced flexing decreases both the size and yield of crop plants, and that mechanostimulation in general slows the development of plants. It has been shown further that mechanical perturbation affects a plant's responses to many other environmental stimuli, such as gravity, light, cold and drought stress. Even a plant's differentiation into its characteristic form can be altered by imposing external physical constraints on the developing plant. This research program utilizes the model genetic organism, Arabidopsis ( a small mustard plant), to dissect the mechanosensory process. It has been engineered so as to have a novel phenotype whereby it emits light in response to mechanostimulatory treatments. This easily assayable response should enable the rapid identification of plants which have mutations in components of the mechanosensory pathway, and will permit the molecular characterization of the cell machinery responsible for this cellular property. Apparent similarities so far uncovered in the mechanosensory processes of plant and animal cells suggest that the fuller knowledge of mechanosensing gained from this investigation may well have biomedical as well as agricultural benefits. ***